Asymptotic Study of a Smoluchowski Equation Arising in Modeling of Nematic Polymers

The investigator and his collaborators study the Smoluchowski
equation arising in the kinetic molecular theory of nematic liquid
crystalline polymers. The intermolecular interaction of excluded
volume effects, which is responsible for the isotropic-nematic
phase transition, is modeled by a mean-field potential. Both the
Mayer-Saupe and the Onsager potentials are used. The main purpose
of the project is a rigorous study of the dynamics and rheological
properties of such systems. The problems to be addressed include
bifurcation analysis of both the equilibrium and the shear flow
case, and questions arising in the treatment of the equations by
means of the classical theory of infinite dimensional systems.
One of the central problems is the question of the existence of
inertial manifolds on which the partial differential equation
reduces to a finite system of ordinary differential equations, the
so-called inertial form. The starting point of the project is
recent results in which the isotropic-nematic phase transition was
resolved for the Smoluchowski equation using the Mayer-Saupe
potential in the equilibrium case (no external flow), as well as
the existence of absorbing balls (cones) in Gevrey spaces of
analytic functions. These questions remain open for the Onsager
potential, and are addressed in the study. In the absence of the
flow, the Smoluchowski equation is a gradient system that
preserves uniaxial symmetry, and as such it exhibits fairly simple
dynamical behavior. However, even a passive interaction with a
symmetry-breaking shear flow introduces complicated dynamical
features, such as different kinds of periodic solutions (tumbling,
kayaking, log-rolling), and even chaos. These are characteristic
for intermediate shear rates. At low and high shear rates flow
aligning takes place. A rigorous investigation of these dynamical
features is conducted in the project.

The main goal of the project is a mathematical understanding
of the transition that occurs in a class of polymeric materials
containing anisotropic molecules known as mesogens to a so-called
liquid crystal phase. Due to their anisotropy, the molecules
interact with each other, resulting in alignment. This long-range
orientational order resembles the one found in solid crystals,
while, unlike solid crystals, the material retains fluidity due to
the absence of the long-range positional order of molecules. The
transition to such a phase is induced by changes in the
temperature and the concentration of the mesogens in the solution.
The distribution of the molecules can be described by a partial
differential equation known as the Smoluchowski equation, which is
the main subject of this project. It was already employed
successfully to explain the transition to the liquid crystal phase
under some very special conditions, with many unanswered questions
still remaining. The significance of these liquid crystalline
polymers lies in the fact that crystal-like properties, combined
with many of the useful and versatile properties of polymers, make
these materials suitable for a wide range of important
applications. For example, liquid crystalline polymers are
abundant in living systems such as DNA, polypeptides, and cell
membranes. Accordingly, they attract particular attention in the
field of biomimetic chemistry. An application of liquid
crystalline polymers that has been successfully developed for
industry is the area of high strength fibers. Kevlar, which is
used to make such things as helmets and bullet-proof vests, is
just one example of the use of polymer liquid crystals in
applications calling for strong, light-weight materials. The
optical properties of liquid crystalline polymers lead to
applications in optical imaging and the display industry. Liquid
crystalline polymers can be used to coat drugs in the
pharmaceutical industry. However, as very complex materials,
liquid crystalline polymers exhibit very complex behavior, and
many of the actual and potential applications of these materials
depend on multidisciplinary research. A better mathematical
understanding of the process of aligning is essential for better
understanding of the behavior of liquid crystalline polymers.
This project addresses some of the central questions regarding
this process.